Physics of Quantized Fields and Black Holes

Quantum effects around and inside black holes will be studied. New tools
will be developed to extend present abilities in calculating vacuum
stress-energy tensors, and efforts made to make these tools of
sufficient simplicity and portability so that they may be adopted and
used by other research groups. Further connections between semiclassical
gravitational studies of extreme black holes and their role in
superstring theories will be sought. Existing results on extreme,
zero-temperature black holes, which play a critical role in superstring
theories, will be extended to include black holes in spacetimes with a
nonzero cosmological constant, and to rotating black holes.

These studies will further illuminate the connection between black
holes and quantum physics, providing new insights into properties of
theories of quantum gravity and helping to establish connections between
superstring theories and more "conventional" approaches to the
quantization of spacetime.